Research Initiation: Stability Analysis of Interfaces in Coextrusion Flows

The objective of the research is to determine the stability characteristics of multi-layer internal flows in configurations relevant to coextrusion processes. The primary interest is to study the effect of non-parallel channel walls on the two mechanisms for instability: the mechanism associated with the presence of fluid-fluid interfaces and the mechanism associated with the presence of solid walls. The baseline geometry to be studied is a two-dimensional channel consisting of two constant width sections joined by a converging section. The stability of steady isothermal flow of three layers of Newtonian fluids of different viscosities and densities will be examined using local linear analysis, global linear analysis, and direct numerical simulation. The direct numerical simulation will be based on time- accurate integration of the spectrally discretized (spectral elements) full unsteady Navier-Stokes equation. The study will be extended to non-Newtonian fluids and will incorporate thermal effects. The long term goal of the project is the development of a reliable method for the (1) prediction of stability characteristics of coextrusion processes and (2) design testing, and analysis of coextrusion dies. The research will lead to improved manufacturing process for coextrusion of polymers.